SRC Forum on Nano-Morphic Systems: Processes, Devices, and Architectures

ABSTRACT
0739436
Ralph Cavin
Semiconductor Research Corporation

Integrated Circuit technology is enabling an expanding array of applications which themselves drive technology innovation. In this forum, we consider an extreme prototypical application as a vehicle to focus research efforts. Imagine that we desire to design and fabricate an active micron-sized system that performs in-vivo sensing and possibly interaction with a single living cell. The technological challenges that must be addressed to develop such a system are daunting and encompass almost every facet of integrated system technology including sensing information processing, energetics, communication, packaging, and possibly actuation. In this forum, we expect to examine these essential technologies from the point of view what may be
ultimately achievable, given our present comprehension of the projected future capabilities of science and integrated circuit technology. The ultimate goal is to obtain a forum consensus on future feasibility of the prototypical in-vivo systems.